Reactive Intermediates

Investigations in the general area of reactive intermediate chemistry will be pursued. Properties of carbenes, twisted pi- systems, and boron-containing reactive intermediates will be studied. Ring expansion rearrangement of carbenes will be used to generate twisted pi-systems, that is, bridgehead double bonds. Methanol or deutero-methanol will be used to trap these reactive intermediates, and to thereby determine the relative amounts of carbene to bridgehead double bond. The mechanism of the reaction of carbenes with carboranes will be studied, and the role of a 13- vertex intermediate will be determined. Intramolecular reactions of carbenes with carboranes will also be investigated and this can lead to the preparation of carboranophanes, the carborane analog of a cyclophane. Preparation and trapping of ortho-and meta- benzyne analogs in the carboranes series will be pursued. The ortho-benzyne analog will lead to the carborane version of benzocyclobutadiene. %%% This grant from the Organic Dynamics Program supports the continuing work of Professor Maitland Jones at Princeton University. Carbenes and twisted double bonds are two reactive species that will be studied. A carbon atom to which there are only two bonds, rather than the normal four bonds, is called a carbene. Since two bonds to carbon are missing in a carbene they are reactive species, and Dr. Jones will employ them to generate another reactive species, a twisted double bond. These studies will be pursued with compounds that contain only carbon and hydrogen (hydrocarbons), and with carboranes (compounds that contain a spherical array of carbon and boron atoms).